QCD Analysis and Phenomenology

Research in theoretical elementary particle physics will focus on investigations which involve extensive collaboration between theoretical and experimental physicists. There will be a general analysis aimed at testing the consistency of our theory of the strong nuclear force and at accurately determining the structure of a nucleon in terms of quarks, and detailed analyses of a variety of individual elementary particle physics processes. These investigations are very important to the interpretation of present experiments and the planning of future ones.